Robert Noyce Teacher Scholarship Program Track 3 at the University of New Mexico

This Noyce Track 3 project aims to serve the national need of developing highly effective science teacher leaders. Additionally, this project will support 16 science teacher fellows by providing mentoring, networking, conferences, coursework, and online programs. The focus is on increasing pedagogical skills, leadership skills, and science content knowledge. The project components will enable high-achieving practicing teachers to become K-12 science teacher leaders with extensive expertise with a STEM learning ecosystem. A STEM ecosystem includes families, informal and formal STEM organizations, and STEM career pathways.

This project at the University of New Mexico includes partnerships with the Taos and Cuba school districts, science associations, laboratories, industry, and cultural & community organizations. Project goals include supporting the development of 16 new science teacher leaders over five years. Project goals also include greater networking among K-12 science teachers and other people in a STEM learning ecosystem. These network connections will help teacher leaders connect school science with career and community applications. A main goal is for science teacher leaders to use their new knowledge and network connections to develop lessons that connect school to community and workplace ways of doing science. This project will be iteratively evaluated. Evaluation of the project will be guided by the following evaluation questions: (a) How well do the science teacher leaders develop STEM ecosystem relationships and networks that serve all STEM learners? (b) What evidence is there that teachers in the program increase and apply their pedagogical skills, leadership skills, and science content knowledge to serve all STEM learners? The results of this project will be disseminated to help enhance the field.

This Track 3: Master Teaching Fellowships, project is supported through the Robert Noyce Teacher Scholarship Program (Noyce). The Noyce program supports talented STEM undergraduate majors and professionals to become effective K-12 STEM teachers and experienced, exemplary K-12 teachers to become STEM master teachers in high-need school districts. It also supports research on the effectiveness and retention of K-12 STEM teachers in high-need school districts.